Connections to NSFNET - Basic Internet Connection Grant Program

Abstract University of Missouri-Columbia - J. Mitchell Connection to NSFNET Proposal No. NCR-9417227 The University of Missouri-Columbia Health Sciences Center (HSC) requests support to provide Internet access to its outlying health care facilities in the city of Fulton. This access will be provided by means of a high speed extension of the internal backbone at the Center. The Health Science Center network is in turn connected to the Internet through the MU campus backbone, so its extension to the remote facilities will provide users at those sites access to the full array of both Internet and HSC resources. The Fulton location is especially significant for the HSC in that it will serve as a model for network communication to many other remote sites in the future. The satellite facility in Fayette, described in this document, similar to the operation in Fulton and would be the next location to be brought into the HSC backbone network with the technology outlined in this proposal in a phased approach.